Mathematical Sciences Computing Research Environments

The Department of Mathematics at the University of Maryland, College Park, will purchase equipment and personnel to support research in the mathematical sciences. The equipment will be used to study: (i) Systems of Conservation Laws, Computational Fluid Dynamics and Turbulence, (ii) Polyhedra in non- Euclidean geometries.